Research Initiation: Modeling of Textile Structure Deformation for Composites Manufacturing

9409963 Chen The award is for research to understand and model the fundamental physical mechanisms which govern the deformation behavior of 2D and 3D textile woven fabrics used as preforms in composite manufacturing. Model experiments will be conducted to quantify local unit cell behavior under a variety of constraint conditions and to determine critical strain conditions for fiber buckling for various weave patterns. Results from those experiments will be incorporated into a unit cell model that can be used to predict quality of conformance to complex part shapes. The research is directed toward the establishment of scientific design guidelines for more efficient use of textile preforms. Insights gained from the research are likely to lead to the development of new, innovative, and robust methods for high volume manufacturing of composite parts.